Forest Response to the Decline of a Dominant Species: Ecosystem to Regional Analyses of the Impact of the Hemlock Woolly Adelgid on Northeastern Forests

The introduction of exotic pathogens and pests to forest ecosystems represents a
powerful agent of ecological change that may selectively remove dominant tree species and
simultaneously stimulate widespread human disturbance in the form of pre-emptive and salvage
logging. Due to the increasing global movement of organisms and materials, the selective
decline and elimination of tree species is an increasingly important ecosystem disturbance that
warrants intensive study at stand to regional scales.
The recent unimpeded infestation of the hemlock woolly adelgid (HWA) across the
northeastern U.S. provides an unusual opportunity and critical imperative to examine the
ecological consequences of the removal of a keystone tree species, eastern hemlock, on forest
composition, structure, and function. HWA is generating widespread mortality and initiating
intensive logging of hemlock from North Carolina to Massachusetts and threatens to produce a
range-wide decline or elimination of this ecologically, culturally, and economically important
species. Specifically, mortality of hemlock stands with sparse understories may lead to
a lengthy period of forest ecosystem reorganization resulting in new, distinct forest types and
major changes in ecosystem function including disruption of decomposition, nitrogen cycling and
nitrate leaching.
Broader impacts from this study include: 1) incorporation of new ecological findings into
scientific publications, presentations, and public outreach; 2) informing the public and land
managers by distributing findings to the HWA working group and other web-based products; 3)
integration of data into existing collaborative efforts with regional experts and professionals; and
4) strong educational training in research design, field techniques, and data and laboratory
analyses for students in the graduate and Research Experience for Undergraduate (REU)
programs at the Harvard Forest.